CRIF: MU - Acquisition of an X-ray Photoelectron Spectrometer

With support from the Chemistry Research Instrumentation and Facilities - Multiuser Instrumentation (CRIF-MU) Program, the Department of Chemistry at the University of Oregon will acquire an X-ray photoelectron spectrometer. Research projects to benefit from this instrument include: 1) research on the design, functionalization, and assembly of nanoparticle building blocks; and 2) band offsets at buried heterointerfaces in novel photovoltaic structures; 3) charge transfer in systematically doped nanostructured materials; 4) composition of nanoclusters produced via an exciting new synthetic strategy; and 5) characterization of photochemically degradable polymers.

The X-ray photoelectron spectrometer (XPS) is used for chemical analysis. It irradiates a sample with a beam of monochromatic X-rays and the energies of the resulting photoelectrons are measured and related to specific elements. XPS often plays a crucial role in defining the system under study. The work to be carried out by these investigators represents a wide array of systems requiring characterization. A key feature of the requested XPS is that it will be cyber-enabled and made accessible to off-site users.